Oceanographic Instrumentation 2010

A request is made to fund additional and back-up instrumentation on the R/V Wecoma, a 185’ general purpose research vessel operated by Oregon State University as part of the University-National Oceanographic Laboratory System research fleet. The vessel is owned by the National Science Foundation. The request includes:

1) SBE 45 Micro TSG
2) SBE 38 Digital Thermometer

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.